Equipment and Facilities at a Marine Laboratory

ABSTRACT: 9311133, PI-Burris: This project will assist the Marine Biological Laboratory in the acquisition of laboratory and multi user equipment that will benefit resident and visi ting scientists and the educational program. A metabolic gas analysis system will be acquired consisting of two components that will enable the routine, ultra high precision measurement carbon dioxide and oxygen in aqueous samples. The two components of the system are 1) a computer controlled dissolved oxygen (DO) titrator, and 2) an ultra high precision K1 dissolved inorganic carbon (DIC) or total CO2 (TCO2) analyzer. These instruments will allow precise determinations of DO (0.1 uM precision) in sediment pore waters or the water column of freshwater, astuarine and marine systems. Research projects benefiting from the acquisition of the metabolic gas analysis system focus on: controls on organic matter production and decomposition in marine and freshwater sediments; microbial food webs and trophic structure of lakes, rivers, estuaries and the continental shelf; benthic and pelagic carbon and nitrogen cycling in arctic lakes and rivers and land margin ecosystems; the source and fate of dissolved organic carbon and nitrogen in aquatic systems; and biogeochemical changes occurring in lakes due to increased sulfate deposition. The metabolic gas analysis system will be available to all investigators at the MBL and advertised through the widely distributed MBL brochures. A steam autoclave will also be acquired. The Marine Biological Laboratory will make these items available to visiting scientists as well as resident scientists. In a secondary manner, the items may also serve educational purposes.